Presidential Young Investigator Award

This action provides the first year's support for the Presidential Young Investigator (PYI) Award, FY 87. This support includes the NSF matching to the industry contribution provided to the P.I. The award was made to enable the investigator to do research on the development of design methodologies for earthquake resistant design of steel structures.